Japan Long-Term Research Visit: Direct and Indirect Corticotectal Relationships

This award will support a two year long-term visit by Professor John G. McHaffie, Department of Physiology, Medical College of Virginia, Virginia Commonwealth University to Japan for a cooperative research project with Professor Masao Nortia, Department of Anatomy, School of Medicine, Niigata University. The researchers plan to undertake a study of direct and indirect corticotectal relationships. Study of interactions between cerebral cortex and superior colliculus are extremely important because this is the circuitory which controls visual orienting movements and foveation eye movements. Indirect pathways act in a permissive manner, while the direct pathway acts in an active manner. There is little understanding of the anatomical and physiological details of these two systems. The researchers will study the functional significance of the indirect pathway from the cortex via the basal ganglia to the substantia nigra of the tegmentum and thence to the superior colliculus. Results of the research will provide valuable insights into commonalities among the different sensory systems, with added information regarding the interface between sensory and motor (striato-nigral) systems. The results may have major implications for understanding the disorder of Parkinsonism. Professor McHaffie is an experienced electrophysiologist who has participated in several neuroanatomical studies. Professor Norita is a well-established neuroanatomist with a distinguished laboratory and the appropriate institutional resources available for the research. The researchers' previous record of successful collaboration and their common interests should provide a mutually beneficial interaction.